SGER: Theoretical and Computational Study of Electromagnetic Scattering by a Dielectric Groundplane

9813963
Vasavada
The PIs propose to carry out theoretical calculations and corresponding computer simulations of scattering of electromagnetic waves by a dielectric coated groundplane. Initially the PIs will use the method of moments and then compare the results with those obtained from the finite element method. Theoretical efforts will involve finding a class of Green's functions and algorithms to calculate them. These will be implemented in computer codes to carry out simulations.
***